A Semantically-Based Methodology for Proving Safety, Liveness, and Security Properties of Parallel Systems

Current research to establish behavioral properties of concurrent systems uses several different paradigmatic semantics, each with its own domain of applicability. This project develops a unifying denotational semantic
framework for reasoning about safety and liveness properties of concurrent programs in a broad variety of paradigms, including shared-variable parallelism, asynchronous communicating processes, dataflow networks, and Java-style concurrent objects. A single, simple, mathematical model based on "transition traces" is applied to interpret these paradigms, permitting analysis and comparison of programs and specifications across paradigms. This denotational approach additionally supports syntax-directed, or compositional, reasoning. By combining concurrency with procedures and local variable declarations, the framework developed will support Java-style concurrent object-oriented programming and assist in developing a formal basis for the design of correct and secure Java programs. Principles of reasoning that apply to multiple paradigms, as well as laws of equivalence specific to a particular paradigm, are identified. To demonstrate the utility and advantages of the transition-trace approach, semantically-based techniques are applied to security protocols. The project also explores the applicability of semantically-based reasoning in improving the efficiency of automated model checking.